ARFMP: Physics Research Facilities Modernization

This Academic Research Facilities Modernization Program (ARFMP) award from the Research Facilities Office provides funds to the University of Mississippi for the renovation and repair of Lewis Hall and the accelerator building which, after the consolidation to be accomplished, will house all the physical research and research training activities of the Department of Physics. These buildings were constructed, respectively, in 1939 and 1950. Lewis Hall has never been renovated, while the accelerator building was last renovated in 1980. The ARFMP grant of $889,260 and $1,264,607 provided by the grantee as cost sharing will be used to modernize these research and research training facilities and to consolidate all research training activities in physics in one contiguous facility. This project will address the need to improve the current research infrastructure by eliminating water leakage, providing adequate power, and achieving proper climate control to enable more reliable and meaningful experiments to be carried out. This award contributes to the infrastructure of science by providing an improved environment for the conduct of research and for the training of quality undergraduate and graduate students. The Department of Physics at the University of Mississippi has a particular commitment to educating nontraditional students who would be unlikely to go to college outside the mid-south or to begin graduate school outside this region.